On the Kinematics, Dynamics and Design Optimization of BasicMechanical Components and Systems

Mechanical components ranging from gear trains to belt drives have been in existence for many decades and their manufacture has reached a high degree of refinement. However, their mechanical analysis often has been limited to elementary derivations relating to their simplest characteristics. Although these components are seemingly simple, their mechanical analysis is quite subtle and complex. Generally, such components are developed on the basis of experience and extensive life and wear testing, and they cannot be optimized in the design stage. This project attempts to put mechanical component design on a more analytical foundation and addresses the related issues of refined modeling and optimum design of machine components. It comprises four topics including study of the efficiency of mechanical components and systems, application of B-splines to the design and optimization of mechanical systems, study of the trajectories in noncircular planetary gearing, and study of the mechanics of variable ratio drives, including band and tape drives, timing belts and pulleys. The first topic addresses the prediction of power requirements (i.e., the mechanical efficiency) of mechanical systems in the design stage. Much work has been done in this area for gearing, but not for other mechanical system components. This effort focuses on the computer aided prediction and optimization of the efficiency of mechanical components. For the second research topic, the intent is to consider the application of B-splines to various two and three dimensional problems, including robotic path generation, selected problems in the dynamics of high speed cam follower systems and others. The B-spline concept is one that evolved in computer science technology, and which provides a very numerically efficient mathematical method for approximating a function passing through two end points. It can be used to optimize the design of the class of components alluded to previously. The planetary gearing research task, the third one proposed, investigates the algebraic geometry and nature of gear trajectories generated by noncircular gears. This class of gears has been used extensively recently in numerically controlled machining and in photo chemical etching processes, but it is not well understood analytically. The fourth topic is related to band and tape drives, basic flexible mechanical components used in film advance, tape transport, and other nonuniform transmission. The proposed research involves the mechanics of variable ratio band and tape drives, timing belts and pulleys and focuses on investigation of the possibility of designing these components with the complete elimination of slack. Such a design would eliminate the necessity of tensioning devices, and simplify the overall design.